MRI: Development of Bolometer Cameras for the Large Millimeter Telescope

AST-0215916
Wilson, Grant

Recently, two ground-breaking sets of observations -discoveries of continuum radiation from protogalaxies in the millimeter and submillimeter wavelength range, and the development of the largest catalog to date of galaxy clusters exhibiting the Sunyaev-Zeldovich effect -have set the stage for advanced studies of galaxy and cluster evolution by a suite of continuum cameras on the US/Mexico Large Millimeter Telescope (LMT), currently under construction. To ensure immediate scientific payoff from the LMT, this award will contribute to funding the construction of a copy of BOLOCAM -an existing, wide format (144 pixel) bolometer camera developed for the Caltech Submillimeter Observatory. This camera, called BOLOCAM II, will be the flagship continuum array receiver in the early years of the LMT, and will be essential for telescope commissioning as well as early science results.
***